Optimal Capacity Expansion Under Uncertainty

The goal of the research is to develop a precise mathematical model (based on a piecewise-deterministic Markov process) for the uncertainties in capacity expansion planning and to study the construction of optimal plans with this framework by means of stochastic control theory. To provide a concrete context for the Phase I work, the research plan is directed toward the specific capacity expansion plans faced by electric utilities. The investigator plans to achieve the research goal by: (a) formulating a representative class of capacity expansion problems using demand and completion time data from electric utilities; (b) determining optimal controls or investment strategies for these problems using analytic and numerical techniques; and, (c) implementing these optimization techniques on a computer and generating a set of clear, illustrative examples of their effectiveness. Successful completion of these objectives will demonstrate the feasibility of extending the approach to a prototype capacity expansion decision aid. An optimization technique for generation expansion planning would have direct application to determining reserve margins, adopting new technologies, selecting units sizes, and ensuring reliability. In addition, such a technique would provide important leverage for addressing complex capacity expansion problems in other industries.